U.S.-Sweden Cooperative Science: Atomic Structure & Collisions Research at Synchrotron and Tandem Accelerator Facilities

This award will support collaborative research between Professor Ivan A. Sellin, University of Tennessee, Knoxville, and Professor Sven Huldt of the University of Lund, Dr. Anders Barany of the Atomfysik Institut in Stockholm, Sweden, and others at these institutions. These physicists will investigate the generation and use of very low-energy ions, including their use in the laboratory simulation of astrophysical phenomena. In addition, theoretical investigations will be made of the capture of electrons by low-energy ions, and of the interaction of such ions with metal surfaces. Earlier collaborative work of Dr. Sellin and his Swedish colleagues showed how low-energy ions could be produced by x-ray impact; these ions are useful in the modeling of astrophysical phenomena and can also be used in intense ion sources. This research will focus on determining additional properties of the low-energy ions formed by x-ray impact; on developing additional methods of producing such ions; and on developing experimental techniques for their use. The U.S. and Swedish collaborators share common elements of apparatus and techniques in this field, and one of the Swedish physicists is the developer of the time-of-flight analyzer used to explore production rates and temperatures of the low-energy ions produced by x-rays. The Swedish investigators will benefit from the use of x-ray sources unavailable in their country, and the U.S. investigators will benefit from Swedish expertise in instrumentation. Results of this work may have important long-range benefits by enabling us to increase our understanding of astrophysical phenomena through laboratory experiments, and also by facilitating the production of ion beams suitable for microfabrication and other experimental purposes.